Automated Land Resources Inventory and Analysis System

Radford University will purchase an automated land resources inventory and analysis system and field surveying equipment. The data acquisition, data analysis, and geographic information systems with their peripheral hardware and software components will be used by undergraduate students at Radford University as part of their educational program. These inventory and analysis systems are used by scientists in many fields (geography, remote sensing, urban and regional planning, environmental protection, civil engineering, transportation planning, etc.) and are now being employed by private firms, governmental agencies, academic research institutions, and educational institutions.